Scientific Computing Research Environments for the Mathematical Sciences

DMS-9872034

The Department of Mathematics at the University of Central Florida will purchase computer equipment which will be dedicated to the support of research in mathematical sciences. The equipment will be used for several research projects, including in particular: (1) Parabolic Free Boundary Problems, Inverse Problems Versus Plant Growth, and Some Flow and Heat Transfer Problems; (2) Multirate Numerical Schemes for Nonlinear Systems; (3) Computer Experiments in Approximation Theory; (4) Statistical Estimation of Locations of Lighting Events; (5) Numerical Instabilities of Finite-Difference Schemes and Onset of Chaotic Dynamics in Singularly Perturbed Systems.